Collaborative Research: Multivariate positive definite polynomials and their applications via SDP

Musin
DMS-0807640
Barg
DMS-0807411

This project is devoted to the study of point allocations on
the real sphere and related configurations using methods of
distance geometry, coding theory, and semidefinite programming.
The properties of the point sets studied include restricting the
minimum angular separation between any pair of distinct points in
the set or the degree of the cubature formula supported by it.
Recent advances in these problems include a solution by the
investigator of the kissing number problem in 4 dimensions, a new
proof for the kissing number problem in 3 dimensions, and a new
approach to bounds on codes using semidefinite programming, due
to Schrijver, Bachoc, and the investigator. The kissing problem
in x dimensions is the question of how many unit spheres can
touch (kiss) a unit sphere in x dimensions. The new ideas
developed in these works pave the way for further advances in the
problems of bounding the size of codes and in a number of other
problems in distance geometry.

The main problems to be addressed in the project are related
to bounding the size of optimal sets of points on a sphere when
the sets have a certain property, and the links between the
bounding problem and multivariate positive definite polynomials.
Interesting properties of the point set include having a minimum
angular separation that exceeds a given value between any two
points in the set (this is relevant for signal processing
problems), and supporting an exact cubature formula for spherical
harmonic functions of a given degree. Applications of the point
sets studied include communication theory, numerical analysis,
the meshing problem, data representation, and localization in
sensor networks.